Fifth U.S. National Conference on Wind Engineering

The Fifth U.S. National Conference on Wind Engineering will be held on the campus of Texas Tech University November 6-8, 1985. The conference will: expedite early communication of research activities and research findings, stimulate exchange of knowledge and research in complementary research areas, and promote lines of communication between research workers and practicing architects and engineers for rapid utilization of research findings in professional practice. The two and one-half day conference will consist of sessions on a variety of subjects concerning wind engineering research and applications. Some of the specific subjects are wind tunnel and field testing for wind effects, characterization of wind, assessment of wind hazard, windstorm damage mitigation, and application and innovations in wind engineering. The presentations will consist of invited papers and papers selected from abstract submission. Proceedings will be printed from the papers received and will be distributed at the conference. Anticipated attendance at the conference is 200 persons.